Collaborative Research: Towards Ab Initio Kinetics Modeling of the Ultrafast Hydrogen Chemistry in Reacting Flows with Strong Shocks

Many rocket and high-speed jet engines rely on chemically reacting flows that occur at extreme speeds under intense pressure waves. While scientists and engineers understand how common fuels burn at low pressures, they know much less about how fuels react under the intense high pressures and temperatures behind a shockwave. Testing these reactions in a lab is challenging because the fuel ignites in less than a microsecond. Creating computer models is difficult, too, because chemistry, heat changes, and gas movement occur simultaneously and each affects the others. This project combines new physics models of high-speed airflows with advanced chemistry data to solve this problem. This teamwork allows scientists to accurately predict how fuels behave under extreme conditions, which is vital for building future high-efficiency engines. The project also trains college students, hosts science events for K–12 students, and partners with companies and government agencies to prepare future workers.

Many practical combustion systems, including novel detonation-based rocket engines and hypersonic scramjet engines, involve at their core chemically reacting flows characterized by high flow velocities and the presence of strong shocks. This project develops from first principles a predictive physicochemical model specifically for the high-pressure/high-temperature ultrafast hydrogen combustion chemistry, which is difficult to probe directly in the experiments. The research integrates two components: (i) first-principles molecular dynamics to develop a vibrationally state-resolved kinetic description of the key hydrogen oxidation reactions, and (ii) high-fidelity computational fluid dynamics, in particular implementation of the developed model in practical computational tools and their validation in realistic detonation environments. The project elucidates the fundamental role of the vibrational energy transfer and vibrational non-equilibrium in controlling chemical reaction dynamics. Resulting validated thermochemical framework and open-access kinetic database can benefit multiple fields, including combustion, hypersonics, and plasma-assisted chemistry. It also provides the foundation for future development of similar first-principles thermochemical models of more complex hydrocarbon fuels in strongly shocked flows.